Theoretical Study of Organic Conductors

The research will focus on theoretical studies of the electronic properties of organic conductors and related systems. The research will concentrate on three areas: (1) the dynamics of spin density waves (SDWs) and field-induced SDWs leading to an understanding of such transport phenomena in organics as magnetotransport and sound propagation; (2) the effect on SDWs and field-induced SDWs as pressure and magnetic fileds are applied leading to an understanding of reentrance into the normal state in (TMTSF)2ClO4 and of the interplay between SDWs and superconductivity; and, (3) theoretical understanding of the existence of superconductivity in organics.